Presidential Faculty Fellows Program: Program in Urban and Suburban Ecology

9553052 CARREIRO This research and teaching award is part of the Presidential Faculty Fellows Program. The award to Dr. Margaret M. Carreiro is to establish a research and education program in the area of the ecology of natural ecosystems embedded in urban and suburban landscapes. Dr. Carreiro will mentor and guide the research of a postdoctoral fellow, two graduate students, one undergraduate student, and two high school students over the five-year period of this award. She also will develop a course in urban and suburban ecology at Fordham University.